Nonlinear Output Feedback Control: Performance and Robustness

It is proposed to conduct research on the design of output feedback control of nonlinear systems.
In the past several years, the principal investigator's team has introduced and developed a new
approach to this problem that combines high-gain observers with saturation nonlinearities. The
approach proved useful in achieving fundamental progress in semiglobal stabilization, sliding-mode
control, servomechanisms, and adaptive control. The earlier work has emphasized robustness and
asymptotic behavior, which quite often come at the expense of the transient performance. The
goal of this proposal is to develop new tools for nonlinear design that ensure acceptable transient
performance, while ensuring robustness and a desired asymptotic behavior. There are two main
thrusts in the proposal. The first one it to develop the tool of conditional integrators and ser-
vocompensators, which was recently introduced by the principal investigator's team, to a much
wider class of nonlinear systems and design methods. The second one is to develop a logic-based
switching control strategy for a class of nonlinear systems, as an alternative to robust and adaptive
control, in order to improve performance in the face of large model uncertainties.
The class of nonlinear systems under consideration arises in many applications such as mechan-
ical systems, aircraft control, and electric motor drives. Earlier results have been applied to the
control of induction motors and a mechanical system known as the pendubot. It is planned to
continue using these two systems as testbeds for the new techniques.